Spatio-Temporal Database Management for Global Change Research

The goal of this research is the design and development of an integrated system for the management of very large scientific databases, cartographic/geographic information processing,and exploratory scientific data analysis for global change research. The system will represent both spatial and temporal knowledge about natural and man-made entities on the earth's surface, following an object-oriented paradigm. It will apply (user- modifiable) procedures to perform operations on the data, including comparison, derivation, prediction, validation, and visualization. It is an effort to extend the database technology with an intrinsic class of operators, which is extensible and responds to the growing needs of scientific research. Of significance is the integration of many diverse forms of data into the database, including cartography, geography, hydrography, hypsography, images, and urban planning data. Equally important is the maintenance of metadata, that is, data about the data, such as coordinate transformation parameters, map scales, and audit trails of previous processing operations. This project will impact the fields of geographical information systems and global change research as well as the database community. It will provide an integrated database management testbed for scientific research, and a testbed for the development of analysis tools to understand and predict global change.